Hierarchical NEIMO Algorithm Applied to Biomaterials

The overall objective of this proposal is to establish that a fast and efficient constrained Molecular Dynamics (MD) algorithm developed by us recently (called the Newton-Euler Inverse Mass Operator, NEIMO) can serve as a powerful tool for understanding the long term conformational and structural changes in large proteins and enzymes. Such a tool could be used to characterize the interdomain motions in molecules and would considerably enhance the understanding of structure and activity relationships.